SGER: A Distributed Hybrid Optimization Technique for Protein Structure Prediction

Abstract Optimization problems arise naturally in many areas of science, engineering, and busi-ness. Some of these problems are discrete, where the solution involves finding the best configuration over a finite number of possible conformations (for example, production scheduling problems in operations research or circuit minimization problems in computer engineering). Other optimization problems are inherently continuous, where the solution involves finding the best solution in some infinite space (for example, entropy minimiza-tion in physics, portfolio allocation problems in finance, or elasticity studies in civil engi-neering). Often, useful abstractions exist which convert one type of problem into a simpler problem of the other type. Some of the most compelling optimization problems in the biological sciences also dis-play this same kind of duality. An obvious example is the problem of predicting a protein's (continuous) three-dimensional shape- and, consequently, its biological function-from its (discrete) primary structure, expressed as the sequence of constituent amino acids { Friesne~6 . Curren~y, protein structure is most accurately determined by experimental means, such as X-Ray crystallography or NMR spectroscopy. A primary goal for compu- tational biologists is to be able to predict the tertiary structure without resorting to experi-mental observation. This project takes a new approach to the problem of predicting protein structure. In partic-ular, the merger of a novel distributed search technique for discrete (combinatorial) opti-mization, and an efficient, polynomial time, interior-point algorithm for solving continuous optimization problems. Each approach will operate using separate, albeit related, energy models, with the discrete system "proposing" conformations for the con-tinuous model to evaluate. The goal is to increase the efficiency of the computation by exchanging information between the two approaches while exploiting parallelism in order to solve realistically-sized proteins. Specifically the project will construct a prototype hybrid computational tool, apply the prototype to a protein conformation problem, and evaluate the solution by comparison to both existing computational approaches and physi-cal reality.